Mathematical Sciences: Geometry and Dynamics of Mechanical Systems with Symmetry

The investigator proposes researching fundamental questions concerning Euler-Lagrange Equations in Lagrangian dynamics, Poisson structures relative to nonholonomic systems and a number of phenomena relating to bifurcations. Application of the techniques involved are envisaged in control theory and robotics.